CAREER: Growth Factor Accessibility and the Role of Extracellular Mediators

The overall research objective of this award is to apply
engineering principles through mathematical modeling to elucidate
important parameters and variables key to the regulation of growth
factor transport. This type of analysis should find practical use
in deciphering how therapeutics might find access to underlying
tissue or be cleared from the blood stream in a timely fashion.
The educational objective revolves around the idea that learning
relies on effective communication and that team building skills
are critical for interdisciplinary work. Methods proposed to meet
the educational objective include: (1) the assembly of a
biochemical track for undergraduate students interested in
cellular engineering; (2) the development of an upper-level
undergraduate/graduate course in cellular engineering; (3) the
provision of opportunities for women and minorities to investigate
what graduate school and cellular engineering involve through
undergraduate research; and (4) the incorporation of active
learning as well as writing analysis in both classroom instruction
and research group meetings to promote deep learning.